Research for Undergraduates in Thermodynamics of Acid Dissociation Reactions

Dr. Rabindra N. Roy of the Chemistry Department of Drury College is being supported to involve two undergraduate students in a summer research experience in 1991. The students will spend ten weeks in a program for determining the acidic dissociation constants of seawater-carbonate systems using pH measurements.